Doctoral Dissertation Research: Talking the Talk -- Isomorphism in Organizational Discourse

This dissertation research will analyze organizational texts to evaluate the degree of organizational isomorphism: the extent to which organizations come to resemble each other in response to external institutional expectations. Texts from universities and corporations will provide the principal data for these analyses. Comparisons will be made between texts from individual speakers (e.g., university presidents) and from organizational sources (e.g., privacy policies). Texts will be coded using two established computer programs and human coders.